Computing and Information Technology Interactive Digital Educational Library (CITIDEL)

A consortium led by Virginia Tech, with Hofstra University, The College of New Jersey, The Pennsylvania State University, and Villanova University, is building the Computing and Information Technology Interactive Digital Education Library (CITIDEL) to serve the computing education community in all its diversity and at all levels. Topics include computer engineering, computer science, information science, information systems, information technology, software engineering, and all other variations of title and substance in these and related fields.